Presidential Young Investigator Awards: Nonlinear Effects in Optical Glass Fibers

Research interest will include: photoinduced periodic structures in optical fibers, thin films and bulk media. These periodic structures enable efficient frequency conversion, optical switching and dramatically altered dispersion properties. Frequency Conversion - The origin of efficient second and third-harmonic generation (SHG and THG) in optical glass fibers will be studied. These studies will include writing gratings into optical fibers and bulk glasses with a new holographic technique. This technique involves exposing the outside of the fiber or bulk glass to interference fringes at the right periodicity for phasematching of either SHG or THG. The interference fringes will be produced by an Excimer laser, with a wavelength of 248 nm which is resonant with the GeO molecules in the glass responsible for the photoinduced periodicity. Optical Switching - It has been shown both theoretically and experimentally that periodic structures can be used for optical switching. Research into the use of the above mentioned holographic technique to write periodic refractive index changes into glass optical fibers to obtain switching will be carried out. The advantage of this method will be that arbitrary periodicities could be obtained by simply changing the angle between the two interfering beams and thereby allowing switching at an arbitrary wavelength. All-Fiber Pulsecompressor - Ultrashort optical pulses can be obtained for wavelengths longer than 1.3 microns in optical fibers due to solitons. The same type of compression can be obtained for an arbitrary wavelength shorter than 1.3 microns if an periodic refractive index perturbation has been written into the fiber. The principal investigator would like to study this further to make an alternative all-fiber pulsecompressor for the visible and near- infrared.